Sediment Transport and Fluvial Bedrock Erosion in an Evolving Mountain Belt: A Field Study

9903196
Slingerland

The objective of this research is to conduct a field test to better define the mechanisms of bedrock erosion occurring in streams draining the Central Range of Taiwan, and to quantify the amount of bedrock erosion as a function of stream hydraulic and sediment transport variables. In order to accomplish this goal we must measure bedload transport rates at selected field sites in the study area. Therefore a secondary goal is to apply the passive acoustic technique of Thorne and colleagues, developed under marine conditions, to measure bedload transport in these steep mountain streams. To our knowledge it is a
first attempt at this effort. The result will be a dataset of bedrock wear rates as a function of local sediment fluxes and other important variables such as intrinsic bedrock erodibility, channel hydraulics, and grain size of the material in transport. This dataset will be used to test theoretical derivations, with the ultimate goal a process-based, field calibrated fluvial bedrock incision law.